Integrative Approach to Teacher Enhancement in Chemistry

An Integrative Approach to Teacher Enhancement in Chemistry is a 20 month program aimed at enhancing the capabilities of 20 high school chemistry teachers from a five county region in the vicinity of Louisville, Kentucky. These teachers will participate in two five-week summer workshops and three one-day in-service meetings. The workshops will emphasize training in chemical structure and bonding, chemical demonstrations, simple computer simulations and computer assisted instruction in chemistry. Participants will receive two units of graduate credit for each completed summer workshop. These teachers also will provide in-service training for other chemistry teachers in the area.